REU: Measurement of Surface Layer Shear Using a Vorticity Sensor

9529575 Terray Detailed measurements of surface layer velocity shear will make using a new vorticity sensor to test the conjecture that the spanwise averaged shear in the downwind current is the same as in a shear flow over a solid boundary. It is expected that an improved understanding of turbulent mixing near the surface will benefit studies of processes like air-sea gas exchange, phytoplankton dynamics and the mixing of nutrients and pollutants. ***